Plasticity in Ant Mushroom Bodies and its Relationship to Sensory Processing and Behavior

The complex social lifestyles of ants are based on their ability to perform
different tasks during an individual's lifetime (e.g. brood-care, guarding, foraging)
and on learning and memory. These behaviors are controlled by the brain and
depend on brain plasticity. The aim of the project is to study the causal relationship between the structure and function of the brain and the complex behavior that it
controls. Particular brain regions and individual nerve cells that generate complex behavior will be analyzed in different ant species using diverse anatomical techniques. Morphological differences will be correlated with the behavioral performance of the
respective species or guild member (e.g. forager versus nurse ant). The
behavior and learning ability of each ant will be quantified in
standardized tests (e.g. maze performance), the effect of brain lesions on
the ant's behavior will be assessed, and the electrical activity of
prominent nerve cells in the ant brain will be correlated with behavioral
changes. Together, these techniques will help to understand how a small
brain with a limited number of nerve cells can yet generate the behavioral
plasticity required for the survival of the colony.

Ants have to cope with the same general problems and physical constraints as larger animals and humans. Their brains function by the same
principles and their nerve cells rely on the same cellular mechanisms and
network properties. Unlike vertebrates including humans, where populations
of thousands or millions of nerve cells control each small behavioral
component, in ants much fewer cells orchestrate the behavior. Hence the
effect of a single nerve cell's activity on behavioral changes is much
stronger and can be studied much more directly in ants than in larger
animals. This and their complex behavior and high learning capacities makes
the ants particularly well suited as model systems for research on brain
plasticity. Studying the changes that occur in the brains of ants that
learn a simple task may help us to better understand how our own brains
acquire new capabilities and optimize our behavioral output.